Global Correlation Statistics Using Total Ozone Mapping Spectrometer and Satellite Microwave Brightness Temperature Data

This research investigates the temporal correlation of eight years of Total Ozone Mapping Spectrometer and Microwave Brightness Temperature data. This project would be the first study to perform such correlations on a global scale. Results would isolate regions where total ozone data could corroborate recent observational reports of atmospheric normal modes and provide input for current atmospheric climate modeling attempts. This research is important because climate models that must account for ozone concentrations and variations require implicit techniques using correlations such as those studied under this grant.